Acquisition of an Ultrahigh Vacuum Scanning Tunneling Microscope for the Study of Surface Chemistry and Surface Physics

0079796
McEllistrem

The scanning tunneling microscope has done much to broaden our understanding of
Semiconductors and metals, providing a unique view of material surfaces available by no
other technique. Specifically, the microscope's ability to resolve individual surface
atoms has lead to an improved understanding of the chemistry and physics of solid
surfaces. How a chemical reaction proceeds on a surface, or how different surface atoms
diffuse, segregate, or combine can be literally watched on an atomic scale. The awarded
instrument will be used to investigate the formation of metal silicides on silicon, since
metal/semiconductor interfaces continue to impact device fabrication. At a more
fundamental level, understanding the processes that lead to metal silicide formation will
allow the controlled formation of nanoscale particles, particles that are driven to self-assemble
by their reactivity. The instrument will also be used to investigate how reactions proceed
on gallium nitride (from which electro-optic devices that emit in the blue/violet can be
made). In particular, the dynamics of hydrogen on the gallium nitride surface is of
technological interest, and can also be used as a probe of local surface reactivity.
Since gallium nitride surfaces are also polar (N- vs. Ga-terminated), the impact of
surface polarity on surface reactions will also be studied.

Semiconductors are widely used in electronic and electro-optic devices. Nearly all
computer chips, for example, are fabricated from silicon. Compound semiconductors
(the so-called III-V semiconductors) are often found in devices which convert electrical
energy into light, namely light-emitting diodes, found in nearly all consumer electronics,
and laser diodes, which form the heart of a solid state laser, the engine in laser printers
and compact disc players. Research into semiconductors has lead to the development of
faster, smaller computer chips (and thus computers), and novel electro-optic devices.
The scanning tunneling microscope has done much to broaden our knowledge of
semiconductors and metals, providing a unique view of material surfaces unavailable by
any other technique. Specifically, this microscope is capable of attaining atomic
resolution images of surfaces. With it, surface physics and chemistry can observed on
an atomic scale. In short, how atoms move and distribute themselves on a surface, or
how a chemical reaction proceeds on a surface, can be imaged directly with a scanning
tunneling microscope. The awarded instrument will be used to further our understanding of
how metals interact with silicon, and to investigate the surface chemistry of novel
semiconductor materials used in electro-optic applications.